Committee on Biotechnology

9408865 Zelibor This award provides US dues for the committee on Biotechnology (COBIOTECH) an interdisciplinary scientific consortium within the International Council of Scientific Unions. The goals of COBIOTECH are to promote Biotechnology world wide, to advance research, education and the transfer of information and resources on biotechnology internationally, with special emphasis on developing countries.